Acquisition of a 400 MHz Nuclear Magnetic Resonance Spectrometer

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at California State University in Fullerton will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies on a) the reaction mechanisms of oximes and oxime ethers upon electron transfer and for characterization of reaction products and synthesized materials; b) the development of novel methods for functional group transformations; and c) the synthesis and characterization of a homologous series of new di-n-butylchloro(olefin)tin monomers.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry.